Doctoral Dissertation Research: The Operation of Ethnic Networks in Producer-Service Industries

Research by geographers, regional scientists, economists, sociologists, and other scholars on the operation of contemporary economic systems has documented the importance of ethnic networks in traditional consumer-oriented ethnic businesses. Recent economic geographic research has stressed formal and informal production networks as an emerging aspect of industrial organization in advanced economies. Little research has been conducted, however, on the role of ethnic ties or other informal social relations in the producer-services sectors. This doctoral dissertation project will examine ethnic networks among Chinese enterprises in various producer-services industries of the Los Angeles area in order to better understand the influence of ethnic relations on production-oriented sectors of the economy. The research will use statistical methods to analyze information gathered through surveys and intensive interviews, with special emphasis placed on examining the locational and sectoral concentration of Chinese firms, the extent to which Chinese firms depend on ethnic networks for capital, information, employees, supplies, and clients, and the dynamics through which ethnic networks function. In addition to adding to focused knowledge about the spatial and operational dynamics of firms run by one of the largest and most active ethnic groups in a rapidly growing sector in the Los Angeles area, this research will provide valuable new insights into the role of social networks in contemporary economic transformations functioning elsewhere in the U.S. and the world. As a doctoral dissertation improvement award, this award also will provide support to enable a promising student to establish a strong independent research career.